Doctoral Dissertation Research: Articulatory and acoustic patterns in phonemic and phonetic nasalization

Vowel nasalization lies at the heart of a number of important, widely-attested diachronic and
synchronic phonological processes throughout the world's languages. However, relatively little
is understood about the mapping between the oro-pharyngeal articulatory system and the
acoustics of phonemically nasal and phonetically nasalized vowels compared to their oral
counterparts. This project combines state-of-the-art rt-MRI methods and sophisticated modeling
techniques to solve some persistent problems regarding the synchronic and diachronic behavior
of vowels in Brazilian Portuguese, with wider implications for many other languages with vowel
nasalization.

This dissertation applies advanced methodologies in the collection and analysis of real-time
magnetic resonance imaging (rt-MRI) to study phonemically nasal, phonetically nasalized, and
oral vowels in Brazilian Portuguese. Researchers debate whether nasal vowels in Brazilian
Portuguese are phonemically distinct or are underlyingly two segments (an oral vowel followed
by a nasal consonant). This work will add a different perspective to this debate by constructing
and analyzing a multi-speaker corpus of nasal, phonetically nasalized, and oral vowels.
Analysis focuses on oro-pharyngeal differences in Brazilian Portuguese vowels, as well as
velopharyngeal opening. This work aims to show that underlying oro-pharyngeal shape of oral
vowels and nasalized vowels differs from those of phonemic nasal vowels, suggesting that each
vowel has its own motor plan. This will add to a growing body of literature arguing that nasal
vowels are not merely oral vowels affected by velopharyngeal opening, and that oro-pharyngeal
differences in these vowels contribute to sound change. The project will also involve careful
analysis of the acoustics of Brazilian Portuguese vowels and will extend to modeling the
acoustics that can be drawn from MR images. This study will give more insight into the causes
of diachronic sound change, specifically with regard to the feedback loop between speech
perception and speech articulation.